Dissertation Research: Population Genetic Structure of Aspergillus nidulans

Research will focus on how genetic variation is distributed in natural populations of a filamentous mold, Aspergillus nidulans, and how it propagates itself in nature. Molds like A. nidulans can produce clonal propagules called spores that are genetically exactly identical to their single parent. Or, they can produce spores that are a genetic mixture of the two parents. This research distinguish will between these two events by surveying genetic variation in natural populations. Genetic markers have been identified that are variable between individuals in nature. If only distinct combinations of markers are observed in any given individual, then reproduction is clonal. However, if some individuals have markers that are combinations of those seen in others, then sexual reproduction occurs. The Aspergilli are an important group of organisms. Many Aspergilli and their relatives are used to produce a variety of useful substances, such as antibiotics. Aspergillus flavus commonly grows on stored grain products, producing a powerful carcinogen called aflatoxin, a threat to livestock and humans. Aspergillus fumigatus and Aspergillus parasiticus can be human pathogens, commonly lethally infecting immune- compromised individuals. While Aspergillus nidulans isn't a pathogen, it is a well-developed research organism, with tools for genetic analysis available that are not developed in other species. Information about its population structure and how it propagates in nature should provide useful clues about the life histories of other molds.